National Environmental Monitoring and Research Workshop; Smithsonian Institution, Washington, D.C., Fall, 1996

9610234 Lovejoy This supplement is to help with th logistical cost of the National Environmental Monitoring and Research Workshop. The purpose of the workshop is to explore how we can improve our current environmental monitoring and research programs and the synthesis of that information to address policy issues related to the health of our Nations ecosystems. There will be approximately 175 attendees at the workshop.